A New Skill Standards Framework for the 21st Century IT Workforce

The National Workforce Center for Emerging Technologies (NWCET) uses its network of business and government collaborators to create a new IT and IT-infused occupational skill standards framework that allows specific industry segments to create framework compliant contents. The new framework can be used to determine what IT skills and capabilities technicians in a variety of business positions need to perform their functions well. The framework helps educational institutions and businesses to meet the needs of swiftly changing areas such as manufacturing, medical informatics and information assurance. During the one-year project, the staff and the partners develop a few models for frameworks and create, test and refine one framework model and populate it with select IT and IT infused occupational categories.